Supplementary Proposal: Research in High Energy Theoretical Physics

This proposal requests a supplement to grant PHY 0456691 to fund a 5-year postdoc in lattice gauge theory at the University of Utah. This request is part of a general scheme developed by the lattice gauge theory community to fund a 5-year postdoc in the field on a competitive basis. The proposed research is to determine matrix elements of weak interaction processes important for understanding QCD.